US-India Planning Visit: Research on Multi-tier Conflict Resolution in the Case of Biodiversity Patenting

This award supports a planning visit to India by Dr. Mahadev Bhat, from the Department of Environmental Studies at Florida International University, to visit Dr. Anil Gupta, of the Indian Institute of Management, Dr. K. N. Ninan, of the Center for Ecological Studies at the Institute for Social and Economic Change, and with local government officials in Ahmedabad and Bangalore, for the purpose of developing a research project on the causes and resolutions of multi-tier conflicts associated with changing global intellectual property rights for biotechnology. Technology's impact on how people work and increases in international economic endeavors cause changes to intellectual property rights.